Collaborative Research on a Unified Prognostics Approach for Vehicle Electronics Using Physics-of-Failure Driven Sensor Fusion

This collaborative research project will be performed between researchers at the Industry/University Cooperative Research Center (I/UCRC) for Advanced Vehicle Electronics at Auburn and the I/UCRC for Intelligent Maintenance Systems at the University of Cincinnati and the University of Michigan. The Centers focus will be on "Collaborative Research on a Unified Prognostics Approach for Vehicle Electronics using Physics-of-Failure driven Sensor Fusion". The research findings in this project will improve the capability and accuracy of the current degradation prediction tools.